Conference Travel Support

Title: Conference Travel Support
Proposal No. CMS-0624374
PI: Leigh McCue, Virginia Polytechnic Institute and State University
Abstract

This project supports undergraduate travel to the 2006 ASEE Annual Conference and Exposition. Attendance and participation at the ASEE Annual Conference presents a unique educational opportunity to experience research first-hand, allowing the students to network, exchange ideas, and have their work recognized. As the audience at the ASEE Annual Conference is primarily engineering educators, attendance at the conference shall enrich the research experience and serve as preparation for graduate study providing a foundation for potential future academic careers.